Spectroscopic Studies of Energetic Amine Systems

In this project in the Physical Chemistry Program of the Chemistry Division, Gilbert will investigate the spectroscopy and photochemistry of various nitrogen-containing compounds, such as energetic halogen amines, aminyl radicals, and nitrenes. NX2, NXY, and NX species will be trapped in low temperature matrices for spectroscopic and photochemical characterization, while the photochemistry of several NX3 and NX2Y species will be studied in the gas phase. Ultraviolet/ visible absorption and laser-induced fluorescence spectra will be obtained from the matrix-isolated species to characterize their electronic states as well as to aid in understanding the photodissociation dynamics of the gas-phase amines and their intermediates. %%% The family of nitrogen-containing compounds known as halogen amines is interesting because these compounds are notoriously unstable under standard conditions of temperature and pressure. The reasons for this behavior are not understood, but certain trends are observed, such as increasing instability in going from compounds containing fluorine to those containing chlorine, bromine, and finally iodine. An understanding of these issues in the halogen amines may aid in elucidating the chemical nature of other nitrogen-bearing species.